Combinatorics of Special Functions

The proposed study includes the combinatorial and algebraic
properties of a root of unity. The combinatorial version
uses orbits of cyclic group actions, while the algebraic
version considers rings of invariants of linear groups on
polynomial spaces. For the general linear group
over a finite field, a new (q,t)-version of binomial coefficients
is defined from invariant theory, q being a prime power,
and t a generating function parameter.
Its combinatorial properties are considered.
Several positivity conjectures motivated by this interplay are studied.

The usual way to count the number of objects in a set,
for example, the set of US Senators, is to count each Senator
exactly once- thus 100 Senators. But there are situations
in which we are interested in only a difference,
say the number of those Senators voting yes minus those
voting no. We can model this question as the yes Senators
being counted as a plus one, and the no Senators as a minus one.
In this proposal other weights besides plus one and minus one
are placed on sets. These weights are complex roots of one,
and the resulting "differences" are studied and interpreted
using higher algebra.